Quantum Topology in Vietnam

Abstract

Award: DMS-0715254
Principal Investigator: Stavros Garoufalidis, Thang T. Q. Le

This award provides partial support for participants in the
International Conference on Quantum Topology to be held in Ha
Noi, Vietnam, in August 2007. The conference aims to educate
junior researchers in Quantum Topology, discuss new developments
in the area, and bring together different points of view of
Geometry, Topology, Algebra and Quantum Field Theory. Scientific
themes of the conference include quantum invariants of knots and
links, Heegard Floer homology, Khovanov homology, asymptotic
statements for quantum invariants (including the widely--studied
Volume Conjecture), and geometric topology of three--manifolds.

Quantum topology grew out of ideas and theorems of physicists and
mathematicians in the 1980s and 1990s on relations between
quantum field theories and geometry. That work introduced a
number of new algebraic and combinatorial devices to describe and
attempt to distinguish low-dimensional spaces such as the
complement of a knotted curve in three-dimensional Euclidean
space. This conference will bring together old and new aspects
of quantum topology to add to our understanding of these tools
and to uncover new problems for research in the field. See the
conference web site at
http://www.math.gatech.edu/~stavros/vietnam.html for more
information.